Physics of Excited Atoms and Discharge Dynamics

Koch It is proposed to study simple atoms, hydrogen and helium, in strong electromagnetic fields consisting of one frequency or two frequencies, without or with added stochastic components (noise). Its objective is to understand periodically driven quantal systems whose classical counterpart is chaotic, thus addressing questions in the interdisciplinary area of quantum chaos. New experiments will make a detailed investigation into the effect of stochastic components (noise) added to the strong oscillatory microwave fields. A new program of research will investigate the detailed behavior of low-pressure, dc-biased, radio-frequency gas discharges as a nonlinear dynamical system.